REU: Rapid Shipboard Analysis of Manganese, Copper and Iron

There is a great potential for the use of trace elements in the study of oceanic processes. However, this potential has not been realized to the extent that it could be due to the time, cost, and technique involved in most types of trace element analysis. Thus, it would be desirable to have available analytical techniques which: a) reduce analysis times, b) can be used on shipboard and possibly in-situ, c) are inexpensive, and hence d) are accessible to a wide variety of analysts. This is a proposal to develop new trace element analysis systems which will meet these criteria. Such systems are possible using kinetic- catalytic colorimetric reactions adapted for continuous flow analysis. The best available kinetic-catalytic reaction schemes will be adapted for determining the elements manganese, copper, and iron. Shipboard tests will be performed using the new systems and results compared with analyses performed by other accepted techniques. The suitability of the new analysis systems will also be evaluated for making in-situ measurements and preliminary attempts will be made to develop an in-situ analysis system.